An Analysis of Local Circuitry in the Cerebellum

The cerebellum is a part of the brain that is involved in maintaining equilibrium and coordinating movement. Specifically, it is involved in synchronizing the activity of various muscle groups. This function is accomplished in part by neurons within the cerebellum called local circuit neurons whose structure and function are poorly understood. The intent of this research project is to study the cellular physiology and synaptic circuits of two nerve cells (Purkinje cells and basket cells) that contribute to local circuits within the cerebellum. A greater knowledge of this physiological and anatomical organization of cerebellar circuits will provide a basis for understanding how these circuits control movement.